Learning Mathematics with Computers

Learning Mathematics with Computers The intent of this project is to find ways of presenting mathematics to college students, both mathematics majors and non-majors, in such a way as to enhance their motivation for studying mathematics and to help develop their mathematical intuition. The regular use by students of computers, both in the classroom and in homework assignments, allows wide use of discovery learning, with its emphasis upon making conjectures and testing their validity. Access to computers allows the courses to be taught in ways which emphasize the graphical and numerical aspects of mathematics, as well as the analytical. This project will impact every student who graduates from Franklin College, since all courses which can be utilized to meet the graduation requirement are affected. A recently awarded grant from Lilly Endowment, Inc., aids in this process by providing released time for the investigators for the development of course materials. The project uses a 15 workstation classroom/laboratory equipped with Z-486 computers, an EtherWORKS network served by a DEC PCLAN/Server 3100, and four Cannon BJ-300 printers served by a DECserver 90L.